Preparation of Biological Specimens for Scanning Electron Microscopy

The Electron Microscopy course is being upgraded to include preparation techniques for biological specimen imaging through the purchase of a critical point dryer, sputter coater, and stereoscopic zoom microscope. Students in cell and molecular biology can benefit from an expanded opprtunity to study surface topology. Students in general biology and botany receive a closely supervised first hand experience on the SEM, including the taking of scanning electron micrographs, which will serve as the lab material for the study of intricate structure. The project upgrades graduate school preparation and employment possibilities for graduating students since scanning electron microscopy and transmission electron microscopy are skills that are highly sought after in industry. The college will contribute an amount equal to the award.